RIA: The Competitive Analysis of Distributed Algorithms

This research applies the technique of competitive analysis, originally developed to study on-line algorithms, to the design of algorithms for distributed systems with unpredictable failures. Competitive analysis compares the performance of an algorithm with that of an optimal ``off-line'' algorithm designer in effect to predict the future. Using it, an algorithm designer can avoid the perils of designing for the worst case (yielding algorithms too inefficient under milder conditions to be practical) or for a normal case that may turn out to have little correspondence with reality. (1) The first task of the project is to formulate performance measures for distributed algorithms that are amenable to competitive analysis (the surprising difficulty of this task may explain why previous applications of competitive analysis to distributed problems have largely concentrated on the on-line aspects of those problems). (2) The second is to construct distributed algorithms that perform well by the competitive measures. By implementing these algorithms it is possible to test that the measures do in fact predict good real-world performance. This work will yield both insights into the theory of distributed algorithms and better practical algorithms for the distributed system builder.